Support for Gordon Research Conference on Reverse Osmosis, Ultrafiltration and Gas Separation, at Plymouth State College from July 31 to August 4, 1989

The Gordon Research Conferences are among the most stimulating opportunities for interaction between researchers. This conference promises to have an excellent mixture of industrial practitioners and academic researchers. Additionally, it is in a field of rapidly expanding economic importance and which is likely to have dramatic impact on the technology base of the next century.